Research Experiences for Undergraduates in Membrane Sciences

The REU program will introduce thirty talented undergraduates to research in the field of membrane science. Ten students from eight Kentucky colleges and universities are matched with five faculty advisors. The individual projects are designed along the lines of the research program of the supervising advisor to ensure direct scientific interaction with the graduate and postdoctoral students of each research group. Weekly seminars during the summer and evening seminars in the fall stimulate discussion and provide information on career possibilities as well as on current major research issues, experimental methodologies and specialized instrumentation. Program emphasis is placed on literature searching and analysis techniques, on critical evaluation of each individuals experimental data, and on the development of effective scientific communication skills. Student presentations on their projects complete the program.